CCF: AF: Student Travel Support for the IEEE Conference on Computational Complexity 2014

This award supports student travel to the IEEE Conference on Computational Complexity (CCC), in Vancouver, British Columbia, Canada, on June 11-14, 2014.